Control of Nonstationary Systems Using Information Preserving Neural Networks

Pattern recognition based control methods can produce stable and robust performance in a range of applications and these methods can be designed such that relatively little effort or expertise is required on the part of an industrial practitioner for implementation. Artificial neural nets (ANNs) are well suited for pattern recognition applications. A strength of ANNs are their ability to interpolate and generalize pattern classifications, consequently they hold promise as an improved framework for pattern based controller design. For example, ANNs can be trained to learn a process input - output relationship using historical plant data, and can then be installed online in the role of the internal model of an adaptive controller. Another example is training ANNs directly in the error feedback relationship of a process and then using the ANN as the controller itself. To maintain an accurate description, ANN based controller architectures must provide sufficient degrees of freedom to ensure plasticity, thus permitting system behaviors never previously experienced by the controller to be properly addressed. The research project involves the use of pattern recognition to identify and represent current process characteristics while satisfying these requirements. The focus of this work is the study of control systems that (1) are autonomous in their decision making for design, implementation and adaptation, (2) provide stable and robust performance over a wide range of applications, and (3) succeed in dealing with nonlinear, nonstationary systems. The PIs' method of approach is to study an architecture comprised of several ANNs that each perform specific functions and integrate them into a unified design. These functions include: classification of the patterns exhibited in the recent histories of the manipulated input and controlled output to form a pictorial model of the current process character, translation of this pictorial model into appropriate algorithmic controller parameters for use in any of a number of popular on-line controller algorithms, controller performance evaluation based on the patterns exhibited in the recent history of the controller error, and use of this performance evaluation in the unsupervised training of the pictorial to algorithmic translation mentioned above to improve performance and maintain stability in nonlinear and nonstationary applications. The controller will be tested on a range of single-input single-output process simulations. The processes will display a range of characteristics, including variations in process order, the degree of linearity of the process gain, the variability of the dominant time constant, the size of the signal to noise ratio, and with both slowly and suddenly changing nonstationary changes in the simulated process character.